Research Initiation: A Walsh Associative Memory Based Adaptive Controller for Robot Manipulators

The main objective of this research is to explore the development of an intelligent memory that can be trained to remember the previous control commands for various trajectories of a robot manipulator. In contrast to the conventional analytical approach, this technique will provide a real-time, learning, and adaptive control which does not require any accurate models of the system. In initial work, a simple three-degree-of-freedom manipulator resembling the Stanford arm was used as a model to generate a thousand quantified trajectory points for a training set, and a simple averaging interpolation formula was used to estimate joint commands for other trajectories. A hierarchical (tree) structure was explored for storing the configuration space joint data for the training set.